Integration of Knowledge Forms in Design Optimization

Nonlinear optimization (NLP) techniques often are used to aid in the decisions that must be made as a design progresses. Once the critical variables in a design have been specified, optimization can be used to find the best values for parameters of the design. To use nonlinear programming, the designer must often become well-versed in recognizing why a particular technique is not working and in selecting an appropriate alternative. This research is to develop an expert system using nonlinear programming techniques. This system will be based on knowledge acquired from designers-analysts and from the numerical calculations of the optimization programs. The expert system will operate at several levels--using rules that apply to the entire design space, that apply only under special circumstances, or only in one instance. The availability of such an expert system would free a designer from much of the tedium and frustration of working with optimization programs.